The Role of Bioengineering in Biotechnology-AIMBE Symposium Grant

9409363 Yarmush This American Institute of Medical and Biological Engineering (AIMBE) conference will examine the need for a more quantitative and integrated approach in future developments of biotechnology and the role of engineering in meeting this challenge. Outstanding investigators and prominent policy-makers will present their views on technical and policy issues impacting on the engineering and science base for biotechnology. This overall theme is to be developed over a two-day meeting that is expected to attract 300-500 participants. Leaders in the bioengineering and medical communities are to become aware of: (1) the diversity of contributions that engineers have made in advancing the field of biotechnology; and (2) important areas that require engineering insight and know-how for future developments.